US-Sweden Cooperative Research: System Identification and Control of the Clarification Process

This award will support collaborative research between Dr. Paul J. Ossenbruggen, University of New Hampshire and Professor Gustaf Olsson, Lund Institute of Technology, Sweden. The proposed project focuses on the clarification phase of the activated sludge treatment (AST) process, a highly complex, biological method of treating wastewater. In spite of its popularity around the world, our understanding of the process is limited, and at present there are not adequate methods to control the process. Frequent violations of effluent standards are common even at well-operated plants. The interaction of a number of physical, hydraulic and biological factors in the AST process make system identification and development of effective dynamic control algorithms difficult. In this project, a factorial experiment to identify parameters that significantly affect the clarification process is proposed. The factors of concern are: mixed liquor suspended solids, return sludge flow rate, dissolved oxygen, and sludge blanket depth. Measurements of response, controlled and uncontrolled parameters will be measured at a frequency of one observation per minute. Time series of these critical factors will be analyzed using Box-Jenkins techniques to formulate mathematical models and to develop a control algorithm. All experiments and controller validation studies will be performed on full-scale treatment plants. This research effort will be conducted at the Lund Institute of Technology in cooperation with Professor Olsson, a recognized expert on system modelling and control. The study builds on previous research conducted in Houston and Canada using full-scale treatment plants. By providing data from experiments specifically designed for the special needs of time-series techniques and cause-effect studies, the research should lead to a better understanding of the AST process and its control.